Theoretical Nuclear Physics

***
9800978
Baym
This project continues the ongoing program to develop the fundamental theory of nuclear and other many-particle systems, with application to astrophysical and condensed matter systems.
Nuclear studies emphasize the structure of hadrons, nuclei and nuclear matter; use of high energy electrons to map these structures with subfemtometer resolution; and the developing area of ultra-relativistic heavy ion collisions where the quark-gluon plasma, a state of matter that occurred early in the universe, may be recreated in laboratory. Special focus is on development of new computational techniques for exact calculations of the structure and reactions of light nuclei.
Projects in astrophysics include study of the composition and phases of the various types of matter in neutron stars; dynamics of superfluid vortices in neutron stars, with applications to pulsar speedups; effects of phase transitions on neutron star evolution; the electrical conductivity and generation of magnetic fields in the early universe.
Research on relativistic many-body problems focuses on the theory of electromagnetic and quark-gluon plasmas, and on studies of nuclei with relativistic Hamiltonians. The condensed matter physics program aims at theories of quantum liquids, dynamical response, quantized vortex systems, Bose-Einstein condensation of excitons and trapped atoms, and atomic clusters.
***